RUI: The Holographic Analysis of Low Energy Electron Diffraction Data

9301203 Glander III This project will support research at an undergraduate institution that will involve the collection and analysis of low energy electron diffraction (LEED) data. The surfaces to be studied are copper (001) and Si(111). The LEED data will be analyzed using a holographic technique that shows great promise, but which has thus far only been applied to simulated LEED patterns. If successful, the technique could lead to substantial reductions in the time required for LEED analysis. The principal investigator will collaborate with the theorist responsible for developing the holographic analysis method. %%% This project will support research at an undergraduate institution that will involve the collection and analysis of low energy diffraction (LEED) data. A copper surface and a silicon surface will be investigated. The LEED data will be analyzed using a holographic technique that shows great promise, but which has thus far only been applied to simulated LEED patterns. If successful, the technique could lead to substantial reductions in the time required for LEED analysis. The principal investigator will collaborate with the theorist responsible for developing the holographic analysis method. ***